Conference Support for BEM 17

ABSTRACT CTS-9419685 University of Wisconsin P.I.: S. Kim This grant will help fund the 17th annual Boundary Element Method International Conference (BEM 17) to be held July 17-19, 1995 at the University of Wisconsin. The expertise of the attendees will be oriented towards research, code development and industrial applications of the boundary element method to solve National Challenges in computational engineering. The published conference proceedings will be a valuable reference in state-of-the-art and applications of the boundary element method.